Connection of Augustana College to NSFNET

Augustana College is establishing a connection to NSFNET via a 19,200 bits per second line to the National Center for Supercomputer Applications. The connection enhances collaborations of campus scientists with colleagues at other institutions, and allows access to libraries and other remote facilities throughout the internet. This award funds part of the costs for two years.***//